Modernizing the Undergraduate Instrumental Analysis Laboratory

Undergraduate chemistry majors at DePauw University are being provided with routine access to a significant number of modern instrumental techniques in the areas of spectroscopy, separations, and electrochemistry. A number of modern instruments have been recently acquired: cyclic voltammograph, gas chromatograph, atomic absorption spectrophotometer, ultraviolet-visible spectrophotometer, which coupled with existing departmental instrumentation, have allowed the development of a new laboratory curriculum in Instrumental Analysis. This course has an emphasis on methods for instrumental optimization, methods of data collection and analysis, and methods for studying chemical reactions and reaction mechanisms.